Linguistic Errors Database

ABSTRACT The basic aim of the project is to develop a computerized database of linguistic errors (slips of the tongue) produced by normal and aphasic (post brain damaged) individuals. Once established, the database will be made available to other investigators. The interest in speech errors has grown enormously among linguists, psychologists, neuropsychologists, and neurologists in their attempts to understand how linguistic knowledge is represented in the mind, how it is accessed in behavior, and the neurological basis for such representation and processing. Many individual collections are now in existence consisting of over 25,000 errors. Except for published examples, there has been no away of sharing these data; this project hopes to correct this problem by starting a database with the UCLA Speech Error Corpus of over 15,000 items and the corpora collected by Merrill Garrett (University of Arizona) and Stefanie Shattuck-Hufnagel (MIT), as well as a large corpus of aphasia errors collected by the Principal Investigator and/or published in the literature.